Partnership for Reform Initiatives in Science and Mathematics (PRISM)

The Partnership for Reform Initiatives in Science and Mathematics (PRISM), between the Department of Education and the Kentucky Science and Technology Council, Inc., builds upon the Kentucky Education Reform Act (KERA) to address specific needs and barriers hindering the restructuring of science and mathematics education in the State. The project has three goals. 1. Kentucky students will acquire the conceptual knowledge, process skills, thinking skills, and habits of mind that characterize scientific literacy. 2. More Kentucky students, especially those from underrepresented groups, will follow programs leading to science, mathematics, and technology-related careers, including teaching. 3. The general public and opinion leaders in Kentucky will value knowledge and skills in mathematics, science, and technology as important outcomes of education. To achieve these goals, PRISM will coordinate mathematics and science initiatives in four areas: develop teacher- specialists to support change in classroom practices; alter teacher preservice programs; develop and implement a plan to foster participation by underrepresented groups; and establish policy to enhance awareness and value of mathematics and science education.